RUI: Development of Frame Extensions and Applications, III

Li
0709384

The investigator studies extensions of frames and their
applications in signal processing. A common problem in
applications is data fusion, the combination of data representing
different aspects of the same item. For example, in attempting
to sharpen a picture, treating the foreground and background
separately may produce a better overall image. The investigator
studies frame-theoretical formulations for data fusion,
emphasizing applications in multi-spectral image fusion and
related mathematical and computational issues. He also studies
fused parallel sparse representation using fusion frames,
examining issues of optimality and expected computational
efficiency. Fusion frames are an extension of frames to deal
with a set of overlapping subspaces; the aim is to fuse together
information from overlapping subspaces into the composite total
space. Fused sparse representation involves ways to obtain
sparse representations of a signal in (overlapping) subspaces in
a parallel fashion followed by a fusion operation. The
investigator also studies pseudoframe duals of B-spline Riesz
sequences having either minimum support or both minimum support
and maximum approximation order. Limiting behavior of the small
support of pseudoframe duals is considered. Here pseudoframe
duals arise from a notion of pseudoframes for subspaces (PFFS).
PFFSs are frame-like systems for the linear analysis and
synthesis of a subspace. They differ from frames in that both
analysis and synthesis sequences are not necessarily contained in
the subspace.

Signal processing generally refers to making the signal easy
to handle or of better quality. It is everywhere seen in our
modern society. In this project, the principal novelties
introduced to signal processing are a new frame-theoretical
approach to data fusion applications and ideas of performing data
compression using a notion of fusion frames. Data fusion
combines data sampled in different ways or represnting different
aspects of an item in order to obtain a better representation of
the item. The investigator aims at developing methods of
combining images obtained in different type of cameras (such as
infrared and conventional) into one single image with all
information presented. In particular, he works to provide a
combined image of much greater precision without ad-hoc
procedures of conventional techniques. Advances here are
important for such areas of information technology as commercial
imaging, geographic surveys, geographic survey, mapping, and
sensor array data processing. Similarly, the investigator
develops tools to improve the efficiency of data compression by
reducing a costly compression task into a set of parallel smaller
tasks followed by a precise combination mechanism governed by the
theory of fusion frames. More generally, the methods can
increase the speed of information transmission in a broad range
of communication and signal processing environments.